Oceanography Magazine - Ocean Observatories Special Issue

Funding is provided to support the publication of a special issue of The Oceanography Society magazine Oceanography, titled "Ocean Observatories".

Oceanography is now in its 16th year of publication. It is published four times per year, with issues going to the membership of TOS worldwide as well as to the libraries at major oceanographic institutions. TOS membership (and, hence our readership) includes most of the senior administrators of government oceanographic agencies and academic research institutions. In the past, the magazine has published special issues on a range of topics including the National Oceanographic Partnership Program, Census of Marine Life, and an issue highlighting the contributions of Dr. John Knauss to marine science and ocean policy.

Publication of peer-reviewed articles on "ocean observatories" will convey the latest research in this area to the scientists and others who will be future possible collaborators in this area of science.